Workshop on Broadening Participation in the MetaCenter

9413279 Huskamp This proposal, submitted by the Microelectronics Center of North Carolina, in association with the Coalition of Academic Supercomputing Centers, will fund a workshop on "Broadening Participation in the MetaCenter". The MetaCenter is a concept to facilitate collaboration in the many areas of advanced computing and computational science, such as software development, training and education, user support, networking, etc. Currently, the MetaCenter consists largely of participants from the four NSF national supercomputing centers. This three-day workshop will bring together more than 60 participants from other organizations, such as NSF S&T centers, state and university advanced computing centers, NSF Engineering Research centers, and others to explore how the MetaCenter might be broadened to leverage other ongoing related activities, to provide a stronger base for the development of a national information infrastructure.